Oregon State University MARSSAM Ocean Instrumentation: Replacement of Special Purpose Van for Shipboard Physical Properties Measurements

This proposal requests funding for a special-purpose seagoing van to house the new Oregon State University (OSU) Marine Sediments Sampling Group (MARSSAM) Multi-Sensor Core Logger (MSCL) system, replacing the 20-year old MSCL system at OSU. Cost is $79,480.

Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.